Develop and Administer a Web Site to Serve and Advance the Biogeoscience Community, www.biogeosciences.org

Project Summary
The Geological Society of America (GSA) has been approached by the Biogeosciences Working Group
and asked to prepare a proposal to design, build and host an independent, stand-alone Web site in support
of the entire biogeoscience community. In Task I, www.biogeoscience.org is envisioned as a conduit
through which information would flow to the biogeoscience community from funding agencies, program
managers, societies, and others. In Task II, the Web site would be enhanced and expanded to support
community building and dialog that will help guide and shape scientific discourse. At this time, GSA is
seeking funding for Task I of the project.

Presently, there is no single source of information about biogeoscience funding opportunities, current
research, centers of activity and other important resources. There is a need for a clearinghouse, a principle
source of information about the biogeosciences. A wealth of information is available, and an easy to use,
main source of up-to-date information is needed.

Defining the architecture and constructing the Web site will be the responsibility of a project team
composed of members of the Biogeosciences Working Group, GSA staff and a student intern. The project
team will conduct most of its work via teleconference and E-mail and may hold face-to-face meetings
during scientific meetings attended by members of the team.

In Task I, the Web site would function as an information resource. A wide range of information would be
posted, updated frequently, and made compelling with features on research, people or programs. Other
content that will pull traffic would be job postings and funding announcements. An important Task I
function is search capability that will make the Web site as useful as possible to site visitors. In addition,
the site would contain meta tags to ensure that search engines would easily find it.

In Task II, it is envisioned that the Web site would become an interactive, community-building, dialog site.
The Working Group has identified three broad topics that it will examine and about which it needs input
from the community. Initially, these topics will be the focus of input sought from the community.

GSA is very well qualified to undertake this project for the Working Group with NSF support. GSA has
many years of experience with creating and developing useful, easily navigated, and very attractive Web
sites. GSA continually adds functionality and interactivity to its own Web site, www.geosociety.org. GSA
is thoroughly familiar with the geoscience community and can bring much knowledge about the needs,
wants and preferences of the community to the project.

www.biogeosciences.org will serve this emerging science in several ways: it will attract new researchers to
the biogeosciences, support those already in the field, and help both the biogeosciences and its scientists
flourish.